FRG: Collaborative Research: Topological Invariants and Matrix Models

Abstract

Award: DMS-0244464
Principal Investigator: Cumrun Vafa and Shing-Tung Yau

String theory has had a spectacular impact on many areas of
modern mathematics, including algebraic geometry, differential
geometry, topology, representation theory, analysis and
combinatorial geometry. In particular, string dualities suggest
unexpected relations between these diverse areas, many of which
have been proven mathematically. Recent advances in matrix model
techniques suggest further relations in mathematics. It can now
be expected that number theory will become related as well. It
is proposed to investigate unifying themes in duality symmetries
in search of a deeper understanding of these symmetries. It is
also proposed to work on a range of mathematical problems which
these dualities inspire. Particular dualities include mirror
symmetry, originally elucidated in the context of Gromov-Witten
theory, and S-dualities, which are duality symmetries of
supersymmetric gauge theories and string theories. More recently
both have been related to Matrix integrals. In the case of
supersymmetric gauge theories this gives a relation between
perturbative Feynman diagrams on the one hand and certain
computations on moduli spaces of instantons on the other, which
the PIs propose to elucidate further. In the particular case of
Gromov-Witten theory, connections have been found with knot
theory. This leads to a complete computation of the
corresponding invariants for non-compact toric Calabi-Yau
threefolds. The PIs propose to extend these ideas to the compact
case.

The PIs will be exploiting existing connections and forging new
ones between physics and mathematics to address a wide range of
cutting-edge open problems in both fields. These ideas are
expected to create new links between diverse areas of
mathematics, as certain ideas in physics are equivalent to
important unsolved problems in mathematics. The techniques
introduced into mathematics are expected to have a revolutionary
influence on core areas of mathematics as related techniques have
in the past. This project occurs at the same time as an ongoing
effort by the string theory community and will help set future
directions in that field. String theory seeks to unify the force
of gravity with the electromagnetic and nuclear forces; this is
the problem that eluded Einstein. It is anticipated that
numerous diverse areas of mathematics will become related to each
other in unexpected ways and that this will have profound
consequences for mathematics and physics. Due to the broad scope
of the project, a multi-disciplinary and multi-institutional
approach is indicated. The PIs will be bringing together their
networks of collaborators, postdocs, and graduate students and
directing an intense collaborative effort in these areas. An
interdisciplinary math/physics curriculum will be created to
train future leaders in areas at the interface of mathematics and
physics. The PIs will expand their use of existing internet
videoconferencing technologies for collaborative purposes, and
will organize workshops on the topics of this project. This is a
joint award of the Division of Mathematical Sciences programs in
Geometric Analysis and Algebra, Number Theory, & Combinatorics.